CISE Research Instrumentation: Integrated Video Encoding and Networking

97-30028 Wang, Yao Guleryuz, Onur G. Polytechnic University CISE Research Instrumentation: Integrated Video Encoding and Networking This research instrumentation grant contributes to enable the following research projects: - Multiple Description Coding and Multiple Path Transport for Video Communication over Unreliable Networks, - Video Packet Transmissions with Renegotiated Service Parameters, - Traffic Control and Admission Control for Video Networks, - Dense Motion Field Estimation and Representation for Video Compression, and - Stereo Sequence Compression. The next generation Internet must support many applications with widely varying performance requirements. Among these, the transmission of delay-sensitive compressed video traffic poses a unique challenge. The main objective of this project is to show that the efficiency of a video network can be improved by increasing the integration of video coding and video networking. Solutions with practical impact can only be achieved if the concepts are shown to be practically feasible in an actual testbed. The requested instrumentation will be used to set up a Video Networking (VINE) testbed. This testbed will enable collaborative research in robust video encoding and transport, video-aware resource reservations, and traffic control and admission control of video services. The requested video equipment will also facilitate other video coding research.